Development of Single-Chirality Neurochemical Probes to Image Neuronal Communication

The brain communicates using chemical signals called neuromodulators. These include dopamine, serotonin, and oxytocin. Neuromodulators help control movement, learning, and mental health. Scientists cannot directly watch these chemicals move between brain cells at the same time. They also cannot observe these chemicals at the tiny cellular scales where communication occurs. This project will develop new imaging tools to follow multiple neuromodulators simultaneously. The research team will create new fluorescent nanosensors and advanced microscopes that operate in the near-infrared range of light, where tissues are more transparent than conventional imaging approaches. These tools will help scientists better understand how chemical signals interact to coordinate brain function. The project will also support educational and outreach activities for K-12 students, undergraduates, and local public schools. Hands-on programs focused on optics and neuroscience will be developed to increase public understanding of brain health and neurotechnology.

This project will develop new biophotonic technologies for simultaneous imaging of neuromodulators. The research integrates single-chirality carbon nanotube sensors with custom near-infrared microscopes. This platform will image dopamine, serotonin, and oxytocin release from living neurons at the scale of synapses. The team will first engineer separate monochromatic sensors with distinct emission profiles. These sensors will be integrated with a multi-channel microscope capable of real-time acquisition. Using this system, the project will quantify neuromodulator release and reuptake kinetics in primary neurons. Crosstalk will be observed in engineered neural tissues. This work will establish new photonic tools for understanding how neurochemicals coordinate information in the brain.